Lawrence Technological University Connection to NSFNET

9424547 Lackey This project connects Lawrence Technical University to the Internet over a T1 (1.544 thousand bits per second) line. Faculty and students at the school benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.